Enhancement of Undergraduate Neuroscience Instruction and Laboratory Experiences

Students preparation for careers as scientists and teachers will improve significantly by exposure in their laboratory classes and independent research to a histology and neural imaging system that enables one to peer into the workings and structure of the nervous system. Existing psychology courses will improve, and we are adding an additional upper-level laboratory course on neural techniques and neuroanatomy. Concurrently, University of Richmond students will engage in activities with local middle-school science students, involving them in laboratory experiences both at the university using the new equipment and at their own school, promoting creative and critical thinking skills regarding the brain, nervous system and behavior, while fostering an interest in science. Collaborations will also continue with psychology faculty and students from neighboring Randolph-Macon Women's College.